ITR: An Experimental Study of Thin-Client Computing Architectures

The recent and growing popularity of thin-client systems makes it
important to develop techniques for analyzing and comparing their
performance, to assess the general feasibility of the thin-client
computing model in modern networking environments, and to determine
the factors that govern the performance of these architectures.
This project involves carrying out a series of experiments to gain
information and understanding on the effectiveness of thin-client
architectural mechanisms for graphical and multimedia applications in
various network environments. These experiments include performance
analysis using several real applications as well as controlled
experiments with specialized micro-benchmarks designed to isolate
particular aspects of thin-client architectures that have significant
impact on overall application performance. Application and user
workloads will be varied to understand and analyze the scalability of
different remote display mechanisms in terms of network and server
resources. These experiments will be conducted in a testbed
environment in which network characteristics such as bandwidth,
latency, and packet loss are varied in a controlled manner to
understand their impact on thin-client architectural design
choices. The results of these experiments will have a fundamental
scientific impact by laying a quantitative foundation for future
innovations in thin-client computing research.